Chemistry Career Planning Workshop For Underrepresented Minority Students, University of California, Davis, August 7-9, 1993

This award is made to the University of California/Davis in support of a career planning workshop for underrepresented minority undergraduate chemistry majors. The workshop will be held August 7-9, 1993 at the Davis campus and will be the first of its kind in the western states. The objective is to bring minority students together with high-achieving minority mentors from industry, academia and government in order to introduce the students to the opportunities created by obtaining an advanced degree in Chemistry. The workshop will be hosted by the University of California Davis Chemistry Department and will provide opportunities for the student participants to observe graduate research, advanced laboratory instrumentation, and to meet with graduate students to discuss areas of mutual interest. %%% This award is viewed as a way of encouraging interested minority undergraduates to continue their studies in Chemistry by introducing them to successful minority role-models in a supportive setting. The longer term objective is to increase the participation of minorities in the chemistry enterprise.